Establishment of an NMR Center for Use by Colleges in the Memphis Area

The Department of Chemistry will purchase a Fourier Transform Nuclear Magnetic Resonance (FT-NMR) spectrometer for use in undergraduate education. A Fourier Transform Nuclear Magnetic Resonance facility will be established for use in undergraduate instrumental analysis courses and by research students enrolled in the four colleges in the City of Memphis. The center will be located at Memphis State University, which will provide the matching funds and provide for maintenance of the facility (and will, therefore, retain title to the facility and arrange a schedule for its use). However the center will also provide for the instructional and research needs at three smaller colleges: LeMoyne Owen College, Christian Brothers College and Rhodes College. The integration of C-13 FT NMR (along with the possibility of running coupled, decoupled, off-resonance decoupled, 2-D experiments, etc.) into the undergraduate curriculum will fill a glaring need in molecular spectroscopy in all of the Memphis area institutions and also provide for routine spectral characterization of compounds generated in undergraduate research projects. The inclusion of LeMoyne-Owen College, a historically Black liberal arts college, in the project, as well as the sizable percentage of minorities at the other institutions, ensures that the facility will provide for enhanced educational opportunities for minority students.